New Avenues Beyond the Standard Model: Filtered Dark Matter and Exploding Black Holes

This award funds the research activities of Professor Michael Baker at the University of Massachusetts, Amherst. While the Standard Model of particle physics is very successful, it has several theoretical and phenomenological shortcomings that point towards a deeper, more complete model of nature. The overriding goal of Professor Baker’s research is to discover and understand new particles. This is done both by proposing explanations for the failings of the Standard Model and searching for hints of these explanations, and by using experiments to search for a wide range of new particles. Historically this approach has been very successful, and research in this area advances the national interest by promoting the progress of science in one of its most fundamental directions: the discovery and understanding of new physical law. In this project Professor Baker will further develop a new mechanism which can produce ultra-heavy dark matter, explore the possibility of obtaining a definitive record of the particle spectrum of nature by observing an exploding black hole, and help ensure that the Large Hadron Collider and future colliders are used to their full potential. The proposed project will have a variety of benefits for broader society. Beyond directly progressing science, it will support the development of a globally competitive workforce and will improve STEM education and public engagement through outreach events.

More technically, Professor Baker will study Filtered Dark Matter, which is a promising mechanism for the production of ultra-heavy dark matter candidates. In this direction he will develop explicit potentials for the Filtered Dark Matter mechanism and the related primordial black hole formation mechanism, strengthen the possibility of generating the matter-antimatter asymmetry through the same mechanism, and make predictions for the stochastic gravitational background expected in these scenarios. He will also study exploding black holes beyond the Standard Model. Observation of an exploding black hole could provide definitive evidence of the particle spectrum of nature. In this direction he will develop mechanisms of dark charged primordial black hole formation to establish a consistent picture of exploding black holes, further develop a range of motivated benchmark models of new physics in the study of exploding black holes, and develop experimental analysis techniques for current and future gamma ray, neutrino, positron and anti-proton experiments to effectively leverage the advantages of multi-messenger approaches. Finally, he will also study collider probes of physics beyond the Standard Model. Beyond the novel approaches discussed above, colliders remain a very important way to search for new particles. In this direction he will continue the study of simplified models of new heavy vectors at current and future colliders and propose new analysis techniques for searching for axion-like particles at current and future colliders.